Enhancing the Education Research Infrastructure to Conduct Large-Scale Studies of Policy and Practice

This is a proposal for a system of activities intended to develop a strong research infrastructure in education. It contains a program of research and training for conducting quantitative education policy and practice-related research using large-scale national and international data sets. It would support a fellows program to federal agencies, doctoral fellows, a small grants competition, training in statistical data base analysis, and a series of special targeted meetings "think tanks" for special focused issues not addressed otherwise. Researchers, mostly at beginning levels, would compete for these programs from fields of mathematics, sciences, education, sociology, economics, and psychology and often work across disciplines. The Grants Board would meet 3 times a year to recommend grant awards and to monitor the grant activities. The grant is managed by an office at University of California, Santa Barbara.